Enhancing the Success of Minorities in Science and Engineering: Outcome and Process Evaluation of the Meyerhoff Program

This four year project, Enhancing the Success of Minorities in Science and Engineering: Outcome and Process Evaluation of the Meyerhoff Program, investigates the effectiveness of the Meyerhoff Program for talented Black students in science and engineering. The program components are recruitment, Summer Bridge Program, scholarships, study groups, program values, program community, personal advising and counseling, tutoring, summer research internships, faculty and administrative involvement, mentors, and family involvement. The evaluation will determine which of the program components and other key program factors provide the critical support needed to keep talented undergraduate Black students in science and mathematics. Also, the evaluation will identify what type of institutional support is needed for continuing and replicating an innovative intervention program.